Fluorination of Unsaturated Hydrocarbons with Xenon Difluoride

In this project in the Organic Dynamics Program of the Chemistry Division, Professor Dale F. Shellhamer in the Chemistry Department of Point Loma Nazarene College will study the reactions of xenon difluoride with unsaturated hydrocarbons in protic solvents in order to obtain a better understanding of the reaction pathway. This project will provide research training for undergraduate students. The reactions of xenon difluoride with unsaturated hydrocarbons (alkenes, unsaturated ketones, 1,3-dienes, and aromatics) in protic solvents (alcohols and water) will be investigated. A study of the kinetics and products of these reactions will allow a better understanding of the reaction mechanisms. Earlier studies on the ionic fluorination of acyclic 1,3-dienes with xenon difluoride in aprotic and protic solvents will be extended to include cyclic dienes. The stereoisomers from fluorination of cyclic dienes with xenon difluoride will be compared to previously reported data for bromination and chlorination of the same cyclic dienes.